Regional Workshop: Cell and Molecular Aspects of the Birth, Life and Death of the Nervous System; Pucon, Chile

This Americas Program award supports a regional workshop entitled "Cell and Molecular Aspects of the Birth, Life and Death of the Nervous System." The workshop is organized by Dr. Lester I. Binder, Northwestern University, and Dr. Ricardo Maccioni, University of Chile, and Dr. Alfredo Caceres, University of Cordoba, and will be held October 4-7, 2000 in Pucon, Chile. The general topic is cellular and molecular neuroscience with a specific focus on the cytoskeleton and its role in neural polarity, endocytosis and vesicular trafficking, neurite extension, vesicular transport, signalling events, and neurodegeneration. Scientists from the United States, Latin America, and Europe who are members of the American Society for Cell Biology, the AAAS, and of the Ibero-American Molecular Biology organization (IMBO) will be among the attendees. Graduate students and postdoctoral fellows will constitute a significant number of meeting participants and will present their work in poster sessions. Given the variety of topics and the strengths of the speakers, the workshop is expected to enhance U.S.-Latin American collaboration.